FT-NMR in the Undergraduate Chemistry Curriculum

This project will incorporate a Fourier-transform nuclear magnetic resonance spectrometer in the undergraduate curriculum for Chemistry majors, Biology majors, Biochemistry majors, and premedical students at Whitman College. A new NMR will fill a serious gap in the otherwise excellent instrumentation available in this vigorous and growing science program. The existing continuous-wave NMR spectrometer is over twenty years old, and replacement parts are unavailable. The new instrument will permit a variety of additional experiments to be accomplished, and it will introduce students to several of the modern NMR techniques available. This instrument will also be used in Whitman's science research program, which involves most of the science majors in continuing research projects. These goals will all be accomplished in a highly cost-effective manner, because the proposed instrument uses a modern permanent magnet, avoiding the high purchase and operating costs, complexity, and cryogenic cooling associated with superconducting NMR instruments.